Molecular Genetics of Paraphyly of Brown Bears and Polar Bears: Interspecific Hybridization or Emergence From a Common Ancestor?

This project is designed to study the evolutionary history of Arctic Brown Bears (Ursus arctos) in Southeast Alaska as means of understanding the general biogeography of arctic vertebrates. The PI proposes to construct nuclear phylogenies from 1) introns of two aldolase genes, and intron of a histone gene and an exon from the major-histocompatibility-complex, DQa gene; and 2) the sex-determining region (Sry) and the last intron of the zinc-finger locus (ZFY) on the Y chromosome. These loci do not recombine yet have a high rate of interspecific variation, and thus provide a nuclear paternal analog to the cytoplasmic, maternally inherited system previously described by the PI. If nuclear DNA diversity between polar bears and brown bears exceeds diversity of mtDNAs of brown bears alone, mtDNA paraphyly via hybridization would be indicated. If nuclear and mitochondrial phylogenies are congruent, paraphyly via emergence from a common ancestor would be indicated. The results of this research will indicate the relative roles of geographic isolation, biogeographic patterns, and philopatry in the development of endemic taxa.